Engineering Research Equipment Grant: Manufacturing Engineering Computer Workstation

The computer workstation will be used predominantly in computer intensive, Manufacturing Systems Engineering research by graduate students and faculty. It will be interfaced with the control hierarchy of the robots, conveyors, sensors, programmable controllers, and the control computer of the working Flexible Manufacturing Systems (FMS) in the laboratory. The workstation will provide users with adequate computing capacity in terms of memory, mass storage, speed, networking and connectivity, software support, and a multiuser, multitasking environment. The workstation will be used to address research issues in Computer Aided Process Planning (CAPP), Petri Net Theory and their use in manufacturing systems control, the design, development, and implementation of Artificial Intelligence based Expert Systems in manufacturing systems, local area networks in manufacturing, etc. It will be also used in the laboratory to develop and implement CAPP systems, Group Technology coding systems, vision systems, devise robot application programs, and to research and develop specific application programs for the working FMS.